Focusing and Amplifying Light, X-Rays and Sound

The need to concentrate optical radiation to dimensions less than a wavelength will increase as lightwave technology develops. This will arise out of the desire to have an increasing conentration of devices per unit wavelength squared as well as the necessity to guide optical radiation among the devices. The present effort is directed toward this end. Beginning with a micropipette, a fiber having exceedingly small dimensions is drawn.